ITR: Data Centers - Managing Data with Profiles

This research addresses the problem of adding data management facilities to inherently autonomous, distributed information sources such as those that occur in the web. Here, by data management, is meant the allocation and structuring of resources to provide more responsive access to data for applications. In this kind of environment, data management must be superimposed through an independently controlled service that exists between the data sources and the applications. This is facilitated through the introduction of architecture based on data centers, a collection of machines that prestage and distribute data for its clients. Client applications submit profiles describing their overall data needs, and the data center gathers data and organizes it on behalf of their clients in order to provide efficient data access. This research explores systems issues and techniques for the design and operation of data centers. This includes the management of large numbers of profiles, heuristics for balancing the needs of large numbers of users against the available resources of the data center, and the efficient processing of future client data needs against the data that is managed by the data center.